1993 Atmospheric Chemistry Gordon Research Conference; Newport, Rhode Island; June 21-25, 1993

9310970 Cruickshank The 1993 Gordon Research Conference on Atmospheric Chemistry will be held at Salve Regina University in Newport, Rhode Island, with technical sessions from June 21 through June 25, 1993. The theme of the conference will be "Predicting Atmospheric Change". The conference will address several timely and interrelated aspects of atmospheric chemistry involving regional, continental and global scale processes in both the troposphere and stratosphere. Relevant atmospheric processes include photochemical pollution, tropospheric oxidative capacity, acid formation and deposition, greenhouse gas build-up, cloud and aerosol effects on chemistry and radiation, biogeochemical cycling of trace atmospheric species and stratospheric ozone depletion. ***